U.S.-Chile Program: Aspects of the Qualitative Theory of Functional Differential Equations

Ivanov
0203702

This U.S.-Chile Program award will provide support for cooperative research between Dr. A. F. Ivanov of Pennsylvania State University and Drs. Manuel A. Pinto and Sergei I. Trofimchuk of the Universidad de Chile in Santiago, and Dr. Samuel A. Castillo of Universidad del Bio-Bio in Conception, Chile. They will work on aspects of the qualitative theory of functional differential equations.

The aim of this project is to study both qualitatively and numerically, the global dynamics of solutions of functional differential equations and systems of such equations including questions of the existence, stability, dependence on parameters and bifurcation of periodic solutions, chaotic behavior, and global stability of equilibria. It will emphasize the study of global stability and periodic solutions of equations modeling real life of phenomena and asymptotic behavior in difference and discretized functional differential equations. The significance of the project lies in its potential to solve several important theoretical mathematical problems, thus further developing the qualitative theory of the field.